Behavior and Physiology of the Gibbon

Through extensive research on great apes (chimpanzees, orangutans, and gorillas), Dr. Nadler has found that several aspects of their reproductive behavior, anatomy, and physiology are predictable from the amount of competition among males for mates. He hypothesizes that the origins of these differences are causally related to the difference in their mating systems. Relatively few species of nonhuman primates live in parental or family groups. Gibbons do so, and the social organization of these lesser apes thus differs from that of the great apes. The major aim of the present research project is to use the monogamous gibbon to test the hypothesis derived from Dr. Nadler's research with the polygynous great apes. Gibbons show little or no competition among males for mates, resembling gorillas in this way. Pairs of gibbons, the natural social unit, will be studied in large enclosures. The gibbons' behavior will be observed in conjunction with anatomical measurements and biochemical assays of sex hormones. Subtle behavioral changes in the female and the male will be made more detectable by use of different types of tests, in which either the male or the female controls physical access to the other. Research with gibbons provides a special opportunity to assess comparatively the relevance of a monogamous mating system to the regulation of reproductive behavior in the closest nonhuman relatives of human beings.